Calcium Signaling in the Brain of Behaving Zebrafish

9514777 O'Malley Calcium is a key signaling molecule in the nervous system of all animals. In vertebrate animals, calcium levels inside nerve cells increase when the cells are stimulated. Increased calcium levels have many different actions inside nerve cells, ranging from the immediate regulation of the electrical excitability of the cell to very long term changes in the cell's behavior, which may be mediated through alterations of gene expression. Recently a technique was developed that allows the imaging of calcium activity in nerve cells in the brain of intact zebrafish. This allows measurement of cellular calcium activity in response to a variety of sensory stimuli and also allows the investigation of any correlations between these calcium signals and the behavior of the fish. This approach demonstrated that calcium signals in one particular identified nerve cell in the hindbrain of the zebrafish, the Mauthner cell, were dramatically enhanced after repetitive sensory stimulation. One principal aim of this proposal is to determine the conditions required to produce this novel form of enhancement. This will be accomplished by varying the timing, intensity and modality of sensory stimulation. A second major aim is to understand the cellular mechanisms underlying these large calcium signals. A third aim takes advantage of the fact that the Mauthner cell is a behavioral command neuron, which triggers the animal's escape behavior. This cutting-edge project will demonstrate the molecular basis for a behavior in a living animal. The potential implications are enormous, both for the understanding of the molecular basis of animal behavior and for the development of non-invasive measuring techniques in living animals.